SGER: Organizational Metadata: Description Directory and Beyond

A site description directory, key to activation of group communications, provides a basis from which to consider a broader information directory schema representing a distributed cognition and an articulated organizational history for communities of practice. This project supports investigations into organizational metadata to further the development of a description directory for networked research sites with web interfaces providing distributed site dada input and access. The project encompasses testing a three level system/sub-system prototype directory, exploring a design applicable to a variety of federated networks and system interfaces, as well as incorporating elements of social design to enhance organizational effectiveness. The Long-Term Ecological Research (LTER) Network serves as a unique testbed for the directory concept.